Probabilistic Networks for Automated Reasoning

This is an accomplishment-based renewal based on previous work in probabilistic reasoning and qualitative probabilities within computational implementations. Some important problems are to be addressed in the acquisition and processing of causal information. These include (1) learning of causal structures from empirical data using combinations of observations and manipulations and (2) planning under uncertainty by using qualitative approximations of probabilities and utilities. The approaches to be pursued are indirect experimentation, syntactic derivations , and feedback mechanisms. The short term results are expected to be improved reasoning methods in applications such as medical diagnosis, sensor fusion, and automated management and control of manufacturing processes.